Undergraduate Instruction in Geographic Information Systems

The Geographic Information Systems Laboratory at Central Washington University provides computer hardware and software support for geographic information systems applications, allowing users to store, retrieve, display, manipulate and analyze maps and other spatial data. A state-of-the-art tool for data processing in the earth sciences and in resources management fields, the GIS Lab heretofore has been used primarily as a research facility; equipment needed for purposes of undergraduate instruction has been lacking. The University will buy a Masscomp computer system, 3 color and 6 monochrome terminals, software, and communications hardware. By providing necessary equipment, the project will enable the University to realize the GIS Lab's great potential as an undergraduate teaching facility, and thereby respond to growing student interest reflecting the rapid expansion of GIS application in academic research, government, and industry.